Presidential Young Investigator Award - Theoretical Solar System Dynamics

Dr. Wisdom at the Massachusetts Institute of Technology will conduct a research program with this Presidential Young Investigator Award on the application of the methods of modern nonlinear dynamics to physical problems in dynamical astronomy in the Solar System. Solar system dynamics encompasses the orbital and rotational dynamics of the planets and their satellites, the coupling between them, and the slow evolution due to tidal friction. Dr. Wisdom has shown that chaotic behavior has played an important role in shaping the distribution of asteroids, that chaotic trajectories provide the pathway for the transport of meteorites from the asteroid belt to Earth, that Saturn's satellite Hyperion is currently tumbling chaotically, and indeed that all tidally.evolved, irregularly.shaped natural satellites tumbled chaotically in the past. Dr. Wisdom will continue to investigate such problems in dynamical astronomy in the light of modern approaches to dynamics.